Improved Nondestructive Evaluation of Deep, Inaccessible Flaws in Metal Structures

This SBIR Phase-I program addresses a crucial, unsolved problem in nondestructive evaluation (NDE). Structures as diverse as aircraft, pipelines, reaction vessels, bridges, and buildings can develop defects that are hidden from view by many millimeters of metal. Such defects include cracks or voids in thick structural members, interfacial corrosion in layered structures, and cracks radiating from fastener holes in the second or third layer of a lap joint. Existing NDE techniques are inadequate for detecting such structural problems. Quantum Magnetics, Inc. propose to develop an improved eddy current system that detects deeply buried defects, using low-frequency electromagnetic fields that penetrate deeply into the metal. This system will combine two recent developments: (1) extremely sensitive magnetoresistive magnetometers, and (2) the Three-Sensor Gradiometer (TSG), an elegant noise rejection technique originally developed for superconducting SQUID magnetometers. Quantum Magnetics is uniquely qualified to develop this new system, because of its expertise in measuring the AC magnetic response of small samples and making ultrasensitive magnetic measurements in noisy environments.